Statistical Mechanics in General Relativity and Gravitational Physics

Recent years have witnessed increasing applications of nonequilibrium statistical mechanics and dynamical systems theory in relativistic astrophysics and quantum field theory. Professor Kandrup will investigate certain general features underlying many of these applications and show how such investigations can provide significant new insights into specific problems. The other area to be considered entails an application of ideas from statistical physics and quantum field theory in the early Universe. One principal area in statistical mechanics to be considered is the "relaxation" and stability of classical self-gravitating systems of stars. Relevant questions to be addressed include: Why do galaxies look so similar one to another and "so relaxed" when their nominal relaxation time is much greater than the age of the Universe? Can this apparent relaxation be derived from first principles as a consequence of the "mixing" properties of a system of self-gravitating point masses? Could "mean field fluctuations" or other collective effects induce an effective relaxation on a time scale short compared with the "collisional" relaxation time? In what sense are all self-gravitating systems unstable, and could this generic instability lead to the formation of a massive black hole at the center of a galaxy? Relevant questions to be addressed in field theory include: To what extent can various field theoretic processes in the early Universe be modeled via simple stochastic equations? What does one mean by "gravitational entropy"? Is it possible to envision changes in topology in semiclassical quantum gravity as "tunneling" events, characterized as instantons? Could one, e.g., make precise the idea that the Universe "tunneled into Being" as a quantum fluctuation? What would this imply about the "initial conditions" at the Big Bang, and could this "explain" the observed "arrow of time"?